Connecting the Dots: Lyman Break, Ultra Luminous Infrared and Passively Evolving Galaxies in the High Redshift Universe

This project will develop a better understanding of the formation of galaxies at high redshift by using numerical N-Body simulations with high resolution and physical detail in a full Cold Dark Matter cosmological context. The simulations will follow the evolution of early galaxies up to the present time to connect their properties with those of present-day galaxies. The project will relate directly the spatial distribution and physical properties of the particles in the N-Body simulations with the quantities actually measured for real high redshift galaxies.

Broader impacts include a program to help underrepresented minorities in their transition to college and possibly an astronomy major, and research opportunities for undergraduates.